Phase I IUCRC University of Connecticut: Center for Hardware and Embedded Systems Security and Trust

The Center for Hardware and Embedded Systems Security and Trust (CHEST) coordinates university-based research with needs of industry and government partners to advance knowledge of security, assurance, and trust for electronic hardware and embedded systems. Interests of CHEST include identification, detection, monitoring, mitigation, and elimination of vulnerabilities that affect hardware and embedded systems. The CHEST Center addresses a range of attack vectors across design, operation, manufacturing, supply chains, and integration of the hardware, software, and firmware to a variety of systems. The Center is inventing and disseminating technologies, practices, and guidelines to stakeholders and educating a next generation of experts.

The NSF CHEST Center addresses security, assurance, and trust across several levels: Large-scale systems, embedded systems, design and operations, requirements, standards, manufacturing, supply chains, and integrated circuits and boards. Among the universities, the University of Connecticut will lead CHEST efforts for hardware and embedded system security and trust at the circuit and systems level. Research topics include (i) anti-tamper technologies that help prevent reverse engineering; (ii) counterfeit detection and prevention in the supply chain of integrated circuits and component subsystems, and (iii) methods to automatically configure hardware components in distributed embedded systems.

Security, assurance, and trust of integrated cyber-physical systems enable meeting fundamental human needs, along with supporting broader social, environmental, and economic progress of the nation. The ability of systems to absorb disruptive shocks and recover with minimal loss is key to protecting human lives and property. The NSF CHEST Center influences the practices of industry, government, and the military in design, protection, and resilience to vulnerabilities associated with hardware and embedded systems. Improving assurance and trust contributes to the reducing the frequencies and severities of adverse events with attention to system missions, performance, schedule, and cost.

The NSF CHEST Center website, www.nsfchest.org, is the repository for all publicly accessible data, code, results, etc. These pages will be maintained for at least as long as the CHEST Center is active. In addition, all projects led by the University of Connecticut (UConn) are permanently archived in digital format on the UConn file servers with sufficient provisions for backup and recovery in case of equipment failure. All archival UConn computers and servers are backed up on a regular basis.